REU Site - Physics Research for Undergraduates

The University of Nevada-Las Vegas (UNLV) operates a Research Experiences for Undergraduates (REU) Site. The REU Site is affiliated with the Physics Department at UNLV. Students are recruited nationally, with preference for students from the western US, students from underrepresented groups, and students from institutions with limited research facilities. Ten students per summer participate in the program of laboratory research, a seminar series, and a student poster session at the end of the summer. Students live in the dorms and eat their meals together, thus fostering a sense of group interaction. The students join other undergraduate student researchers from other fields in a combined summer research program of nearly thirty students. Students have an opportunity to visit major national facilities at the Nevada Test Site and at either the Advanced Light Source (ALS) at Lawrence Berkeley National Laboratory or the Advanced Photon Source (APS) at Argonne National Laboratory. Many of the students participate in research at the ALS or APS, using UNLV's research facilities. Students thus get a research experience in both "small science" and "big science".